Increasing Chemical Company Engagement in Federally Funded Research Opportunities

With support from the Division of Chemistry (CHE), Dr. Anthony Boccanfuso of University-Industry Demonstration Partnership is organizing a workshop to convene a strategic set of academic, corporate, government, and non-profit representatives to explore effective strategies to increase private sector investments in federally funded, use-inspired research in the chemical sciences. This workshop will bring together representatives from these companies and a mosaic of educational institutions including leading R1 institutions, historically black colleges and universities (HBCUs), and Hispanic-Serving institutions (HSIs) to identify actionable ways for companies to engage in the NSF solicitation development process earlier, large cross-sector research needs (grand challenges), and the potential to form multisector consortia to catalyze chemistry research in areas of societal-level need. The workshop is slated to take place in Fall 2022 in the Washington, DC region.